SBIR Phase I: FPGA-accelerated 3-D Waveform Inversion For Geophysical Exploration

This Small Business Innovation Research Phase I project will investigate the feasibility of a
high-performance FPGA implementation of full 3-D seismic Waveform Inversion (WFI), the
most advanced and resource-demanding seismic imaging application used today in the oil and gas
industry. The objective of WFI is to estimate a model of the Earth’s subsurface that minimizes
the difference between recorded data and synthetic simulated data derived from an iteratively
adjusted Earth model. The computational kernel of WFI is the 3-D wave equation in a
heterogeneous medium. This equation is solved repeatedly in a gradient optimization process
yielding highly accurate seismic images. The deliverable of the Phase I project will be a novel
Field Programmable Gate Array (FPGA) implementation of an especially optimized WFI kernel
in the form of a socket compliant special-purpose device. In a continuation Phase II project, the
Phase I deliverable will be evolved into a prototype full-fledged implementation of WFI,
delivering order-of-magnitudes improvements in performance over conventional software
implementations on traditional hardware. As microprocessors reach the limits of attainable clock
frequencies and power consumption, there is a growing need in the oil and gas industry to go
beyond conventional computer software/hardware solutions. The proposed project addresses this
need.

The broader impact/commercial potential of this project is to usher in a new era of low impact,
low energy, and much higher-performance computing in the oil and gas industry. FPGA
computing is likely to become a disruptive technology for geophysical exploration, allowing
unprecedented improvements in capability and performance. With the proposed technology, 3-D
seismic data will be processed faster, and used more effectively to characterize and delineate oil
and gas reservoirs in extremely complicated geological settings. Furthermore, the proposed
technology will enable WFI in production settings. The urgent need for this new capability is
highlighted by domestic and foreign oil companies' recent announcements that their main
technological focus and critical requirements are for increasingly challenging environments. In
this context, the accurate, higher resolution, and faster seismic imaging enabled by FPGAs will
have economic impact by: (1) improving the odds of finding new deposits of oil and gas, (2)
reducing extraction and development costs by providing higher imaging accuracy, (3) increasing
the amount of hydrocarbons recovered, augmenting the national oil and gas reserves, reducing
dependence on foreign oil, and benefiting the U.S. economy.